SBIR Phase I: Software for Micro RNA Detection and Analysis

This Small Business Innovation Research (SBIR) Phase I project is to refine a neural network method for the identification of functional RNA molecules, specifically with extension to eukaryotes.

The commercial application of this project will be in the area of antisense RNA therapeutics.